III-CXT: Collaborative Research: A High-Throughput Approach to the Assignment of Orthologous Genes Based on Genome Rearrangement

Orthologous genes, or orthologs, are genes in different species
that have evolved directly from a common ancestral gene.
Genome-scale assignment of orthologs is a fundamental and
challenging problem in computational biology, and has a wide range
of applications in comparative genomics and functional genomics.
This project continues the development of the parsimony approach
for assigning orthologs between closely related genomes
which essentially attempts to transform
one genome into another by the smallest number of genome rearrangement
events including reversal, translocation, fusion, and fission, as well as
gene duplication events. The project addresses three key algorithmic
problems including (i) signed reversal distance with
duplicates, (ii) signed transposition distance with duplicates,
and (iii) minimum common string partition. Efficient solutions to each of
these problems are combined and incorporated into a software system for
ortholog assignment, called MSOAR. The project encompasses
genome-wide analysis of orthologous (and paralogous) relationships on
the human and mouse genomes to valdiate the approach, and more importantly,
to address several important evolutionary biological questions including
the characterization of gains and losses of duplicated genes in the
two genomes, the elucidation of gene movements in one genome with respect
to the other genome, and the quantification of different mechanisms of
gene duplication.

Intellectual merit.

The parsimony approach presents a novel method for performing genome-wide
ortholog assignment that takes into account both gene sequences and locations.
The above algorithmic problems are new in the literature and their solutions
likely require the introduction of novel algorithm design and analysis
techniques. The questions regarding gene duplication and quantification of
the duplication mechanisms in model species are of fundamental importance
in evolutionary biology.

Broader impact.

As ortholog assignment is a fundamental problem in comparative genomics and
has become a routine practice in almost all areas of genomics, MSOAR
will find itself a wide range of applications in biology and genomics.
Moreover, the research will provide the training opportunity for two computer
science graduate students in the interdisciplinary field of computational biology.

Information concerning this NSF project will be provided at the website:
http://msoar.cs.ucr.edu/